Live-data Educational Materials for an Interdisciplinary Science and Technology Training

Interdisciplinary (99)
An interdisciplinary approach for science and technology education opens new opportunities for increasing research-related impacts among undergraduate students. This project is creating a unified common framework for sharing ideas and knowledge across disciplines. The focus of the project is to develop a prototype of six educational modules based on three premises commonly shared across disciplines: (1) the concept of patterns, which is fundamental to visualizing information; (2) modern computing tools as an effective aid in presenting and animating graphical patterns for understanding data; and (3) cross disciplinary expertise and data sharing to leverage individual efforts in enhancing SMET education. Educational materials are being developed to introduce and illustrate this concept of patterns as an interdisciplinary approach. In addition, an internet-based community forum is being developed to share these educational materials and exchange ideas and knowledge across disciplines.